Polynuclear Transmetalation Reactions and Products

This award from the Inorganic, Bioinorganic and Organometallic Chemistry Program is in the area of transition metal chemistry. The project is concerned with reactions in which atoms of two different metals are exchanged between carrier molecules to which they are attached, so-called transmetalation reactions. Of particular interest are reactions involving polymetallic species, species which contain several metal atoms within one molecule. One aim of the project is to use transmetalation reactions to synthesize polymetallic species containing atoms of two or more different metals within one molecule. Such mixed-metal polymetallic species are expected to have interesting catalytic properties and also are models of important enzymes, such as the respiratory enzyme cytochrome oxidase. It may be possible also to decompose the mixed-metal species to yield alloys of types which cannot be made directly from the constituent metals. The focus of the project will be the newly discovered phenomenon of transmetalation which leads to quantitative, stepwise replacement of metal centers in polymetallic targets by other metals from simple molecular transmetalators. The reactions proceed under mild conditions and the products are easily separated. The major components of the research will be: 1) isolation, structural characterization and electrochemical studies of cationic targets and transmetalation products; 2) investigation of earlier and heavier element transmetalation systems; 3) development and use of more economical transmetalators; 4) identification of reactions of linkage transmetalators which give large polymetallic molecules; 5) description of the selective ligand chemistry of heteropolymetallic molecules; 6) use of transmetalation to generate new bulk alloys and supported metal catalysts; and 7) development of heteropolyorganometallic chemistry.